Geometry and Kinematics of Faulting and Dike Intrusion in the Tertiary East Greenland Rifted Margin

9508250 Karson This project will conduct mapping and paleomagnetic studies of the East Greenland rifted margin along the northeast branch of the Atlantic Ocean, a uniquely uplifted and exposed area of rifted continental margin. The basaltic lavas of rifted margins are typically imaged on seismic reflection profiles as a series of seaward-dipping reflectors that record a progressive subsidence and flexure of the continental edge during the transition to seafloor spreading. Surface mapping will document the interaction of faulting and basalt intrusion, and the large fjords will afford natural cross sections of key parts of the major structures. The onshore data will be integrated with offshore data to provide a comprehensive view of the internal structure and composition of this continental margin. Logistical support is being provided by the Danish Geological Survey. The results of this project will provide a comprehensive view of the internal structure and composition of this continental margin, and will be applicable to other rifted margins in a variety of tectonic regimes.